RUI: Nondipole and Quantum Confinement Effects in Atomic Spectra

This project aims at advancing the understanding of nondipole(quadrupole, and
octupole)interference effects in photoelectron angular distributions from atoms and ions
at low photon energies (tens eV to a few keV), at advancing the understanding of
quantum confined structures, and at fostering integration of research and education at
the University of North Alabama. Specifically:
A. To learn about peculiarities of nondipole effects in photoelectron angular
distributions from a variety of atoms and ions with closed shells and open-shell atoms,
especially atoms and ions that exhibit nd and/or nf collapse.
B. To study confinement-produced effects on the structure and photoionization of
confined atoms, both under high pressure and endohedrally confined in A@C60
nano-formations.
C. To involve undergraduate students, including international students, in research,
thereby providing them an opportunity to get a superior professional education and
training for entry into graduate study in physics or scientific and engineering careers,
thus fostering integration of research and education at UNA with an international
education impact.
D. To enhance research infrastructure and emphasize the professor-researcher
model for faculty at four year UNA